Collaborative Research: Assessing the Causal Influence of Atmospheric Opacity and Sea Ice on Arctic Warming in a Novel Circulation-controlled Framework

Over the last 40 years, the Arctic has warmed more than any other region on the planet. This greater-than-global Arctic warming is projected to continue with lasting impacts on human populations, ecosystems, and infrastructure. While the fundamental mechanisms that lead to greater-than-global Arctic warming are known, the mechanisms controlling the magnitude of Arctic warming are harder to constrain. This project is a focused effort on what has and will control Arctic warming from 1980 to 2060. By specifying aspects of the atmospheric conditions that are relatively well constrained (the winds), we will better understand the importance of drivers that are harder to constrain observationally (clouds and sea ice thickness). This work will lead to transformational advances in our understanding of what does and does not control Arctic warming.

This project is focused on the following research question: What is the causal influence of sea ice thickness and atmospheric opacity (i.e., clouds) on recent and near-future Arctic warming rates? This research question and associated hypotheses will be assessed in a well-established NSF-funded earth system model (Community Earth System Model, CESM) guided by observations including those from a recent year-long field campaign with substantial in situ observations (Multidisciplinary drifting Observatory for the Study of Arctic Climate, MOSAiC). The central outcome will be quantifying the causal influence of two mean state properties (atmospheric opacity, sea ice thickness) on Arctic warming rates from 1980 to 2060 using a novel ‘wind-nudging’ methodology that constrains the large-scale atmospheric circulation. An inquiry-based 2-week middle-high school curriculum will be developed centered around the driving question: How might weather in your area be impacted by the Arctic? The curriculum will be reviewed by experts and disseminated through virtual teacher workshops, enabling hundreds of teachers in North America to bring current Arctic research into their classrooms. The project will also actively engage early career scientists in the research including a Ph.D. student and two summer Research Experience for Undergraduates (REU) summer students.